Statistical Estimation from Videos of Freeway Traffic

The proposed research focuses on the estimation of velocity, density, and
flow fields from video recordings of freeway traffic, using data
from the Berkeley Highway laboratory, which has recorded thousands
of hours of traffic flow on freeway I-80. The investigators are
particularly
concerned with recordings which are not sufficiently well resolved
to allow unambiguous vehicle identification and tracking.
They propose to investigate two broad classes of methods. The
first, building on an initially encouraging approach, is based
upon local semiparametric statistical modelling of the velocity
field. The second is based upon simulation using microscopic
models. Both of these present challenges for the development of
statistical methodology and theory.

Broader impacts include: the development of effective, practical
methods for video surveillance of traffic, which would be of
widespread utility; the compilation of a large empirical body of
velocity fields, which will be a valuable resource for researchers
in traffic flow theory; extension of the methodology to the more
general problem of estimating optical flow in two dimensions,
which has widespread applications in computer vision; and the
involvement of undergraduates and graduate students in research.